Support for Publication of the Twenty-First Symposium (International) on Combustion held at the Technical University, Munich, August 3-8, 1986

The biennial publication of the proceeding of the International Symposium is one of the most valuable ongoing contributions to the scientific literature. Support (to the extent of $4,000) is a fine investment to make in connection with the 1986 Symposium. A 12-month grant is recommended from FY87 funds in the amount of $4,000.